BAC: Sensory Feedback and Control of Legged Locomotion: Biological Simulation and Robotic Implementation

An important problem in robotics research is how to build a robot that can move over steep, irregular, or otherwise rugged terrain in a flexible and agile manner. Because wheeled vehicles do not perform well over such terrain, engineers have attempted to design legged robotic vehicles for this purpose. The idea is to use such vehicles to explore places where humans cannot easily go, such as the surface of other planets, or rugged or dangerous places on earth. Insects represent an extraordinarily variable life form that has the characteristics of adaptability and versatility of locomotion on land that engineers desire. In this award to Drs. Fred Delcomyn, Narendra Ahuja and Mark Nelson, a robotic, legged vehicle will be modeled after an insect. First the control system for locomotion will be designed and simulated on a computer. The unique aspect of the present design will be a deliberate adherence to the functional operation of the insect, especially in its use of feedback from sense organs in the legs to help it deal with uncertain footing. By building into the robot a rich array of sensory feedback from the legs, this device should emulate the versatility and adaptability of the insect, and impart to the robot the fault- tolerance and agility of the biological system. This research wil contribute to engineering a machine which utilizes the biological characteristic of locomotory adaptability.